Summer Project for High School Teachers of Honors Chemistry

Summer Project for High School Teachers of Honors Chemistry This three-year chemistry program is designed to increase the effectiveness of 120 teachers in the laboratory, strengthen their subject-matter background, and assist them in providing outreach to other teachers in their system and in their region. In each of three summers, a different group of forty leader teachers of honors and Advanced Placement chemistry will participate in an intensive five-week residential program structured on chemical laboratory experiences and integrally incorporating attention to practices of potential success in peer leadership activities. In addition to the goal of extending the effect of this program to other teachers, it is expected that the participant teachers will strengthen the disciplinary base of their students and positively influence career decisions for science among able students. Extensive follow-up activities by the participants will provide a system for networking the teachers with each other and with the project staff.